Trapped Gases in the Greenland Ice Sheet: CO2 Isotope Ratios & Concentration in the Past Atmosphere

As part of the Greenland Ice Sheet Project, this project will extend the atmospheric CO2 concentration and isotope composition record back through Holocene times. This would be done by measuring the concentration and C13/C12 ratio of carbon dioxide in atmospheric gases trapped in relatively small (250 g) samples of ice from Greenland ice cores. The technique would be to place the sample in a specially designed vacuum system and to sublime the ice onto the surface of a -80 c cold trap. The gas will be released by this procedure. The amount of CO2 sample so obtained would be accurately measured and its C13/C12 ratio determined. The air in the sample would be recovered on molecular sieve. The amount of air, per unit of ice, would record the altitude of the ice sheet at the time of seal-off. The ratio of CO2 to air would be accurately measured (to better than 0.5%) which would record the CO2 concentration of the sample of trapped atmosphere to better than 1ppm. The C13/C12 ratio of atmospheric carbon dioxide during glacial times will also be measured. The change of this ratio during the glacial/post-glacial transition will be an important test of the proposed mechanisms for the large (80 ppm) CO2 concentration change that occurred at that time. Other climate-related questions include a detailed study of the end of the last glacial and the glacial/post-glacial transition, the Younger Dryas event, and the Dansgaard-Oeschger events. These concentration and stable isotope data, combined with radiocarbon dates for CO2, will enable testing of carbon cycle models relating to past and future climate change.